Center for Child Injury Prevention Science (C-ChIPS)

A planning meeting will be held for the Center for Child Injury Prevention Science (C-ChIPS) to become an Industry/University Cooperative Research Center. Its mission will be to ensure the safety of children by conducting scientific research on the prevalence and predictors of child injury, and evaluation, development, testing and dissemination of commercial technology and public education programs for prevention. Work will build on existing collaborations that leverage the capabilities, interests, and expertise of the Center faculty and its industrial partners. The Center's research projects will address three scientific themes: Safety Monitoring and Risk Assessment; Hazard Evaluation and Testing; and Prevention Technology Development.